Oceanographic Instrumentation

9619044 Taylor This grant provides funding to purchase shipboard, shorebased and mooring instrumentation in support of NSF-funded research. The shipboard instrumentation will be used aboard the R/V Moana Wave, a 213 foot vessel, which is owned by the Navy and operated by the University in support of oceanographic research. Instrumentation requested includes a spectrometer, CCD camera, an acoustic command encoder and transducer, a display monitor, slip ring assemblies and a cable hotsplicer. The instrumentation is requested for support of NSF-funded cruises aboard the Moana Wave during 1997.